SGER: Gulf Stream Transport

This proposal seeks to demonstrate a technique for observing ocean currents by electric field measurements using a towed instrument of recent design. The measurements will be made in conjunction with a cruise across the Gulf Stream in which several additional observational techniques will be employed. The several data types will be intercompared to improve the accuracy of the methods.